CISE Research Instrumentation: Design of a Distributed Computing Environment Using PowerPC MicroKernel

CDA-9529561 Cook, Diane J. Shirazi, Behrooz A. Kavi, Krishna M. University of Texas- Arlington Design of a Distributed Computing Environment Using Power PC Micro Kernel The goal of this project is to investigate, design, and develop a unique distributed computing environment using a cluster of 12 networked PowerPcs. The uniqueness of the proposed research is based on the development of a set of tailor-made, PowerPC micro kernel routines to efficiently manage the overall system for a specific, large-scale AI application: parallel knowledge discovery from large complex databases. The main objectives are: (1) Developing a set of new and unique load balancing schemes for management of distributed systems. The schemes will be tailored for AI applications and implemented using the PowerPC micro kernel routines. (2) Developing a new distributed system for parallel knowledge discovery from large complex databases. The application will be carried out using the computing facility and proposed load balancing environment.